Fabrication of Epoxy Replicas of French Neandertals

The primary objective of this project is to allow the production of high definition molds and casts of a series of important fossil hominids from the Upper Pleistocene of France. These fossils are currently at the University of Bordeaux but will soon be dispersed to other facilities at which point they will no longer be available for casting. Hence, this is an urgent project. The casts will be become part of the Fossil Pattern Repository and will be available for examination by scholars.